Homological Algebra Methods in Topology and Combinatorics

Over the past two decades, low dimensional topology has seen a great
deal of studies in two types of invariants: gauge theory type invariants
in dimension four and combinatorial type invariants in dimension three.
While both sides have deep connections with physics, they share little
common techniques and have rather different flavors. This picture could
change though, with recent work due to Khovanov and Ozsvath-Szabo.
In 1999, Khovanov introduced a graded homology theory for knots,
and proved that its graded Euler characteristic is the Jones polynomial.
This has turned out to be a far reaching generalization of the Jones
polynomial. Furthermore, there is strong evidence that Khovanov theory,
along with the Ozsvath-Szabo theory, could bridge the connection between
gauge theory type and combinatorial type invariants.
Motivated by Khovanov's work, the PI, with his student Laure
Helme-Guizon, has established a graded homology theory for graphs which
yields the chromatic polynomial when taking Euler characteristic.
The PI intends to further his investigation on these homology theories,
both for knots and for graphs. Some of the specific problems are:
understanding their geometric meanings, studying their behavior under
various cut and paste operations, constructing homology theories for
various other polynomials of knots and graphs, and investigating
relations with other invariants in low dimensional topology.

Low dimensional topology studies the shapes of three and four dimensional
spaces. These dimensions are of particular interests to mankind because
of the dimensions of our space and our space-time. A specific subfield
in low dimensional topology is knot theory, which studies the knottedness
in our three dimensional space. Knots are worthwhile to study not only
because they are fundamental in 3-dimensional spatial structure, but
also because of its connection to areas outside mathematics. For example,
biochemists have discovered knotted DNA molecule (1980s) and knotted
proteins (2004). It is also intimately related to the study of graph
theory, an area interesting to mathematicians, computer scientists, and
others. Over the past two decades, there have been a flourish of new
invariants in low dimensional topology, boosted by ideas from gauge theory,
quantum algebras, and mathematical physics. In particular, a new
invariant for knots, developed by Khovanov using ideas in homological
algebra, has sparked a great deal of interest recently. An analogous
theory for graphs has since been developed by the PI and his student.
This project aims to investigate these new invariants, with a particular
emphasis on the homological algebra methods for knots and graphs.